Fall 1985 Joint U.S.A./Italy Cooperative Workshop II

This project is a planning workshop between representatives of Italy and the United States. The group will discuss research areas of mutual interest in the repair, strengthening, and evaluation of existing buildings and bridges of all types subjected to the total environmental effects of wind, gravity forces, other lateral forces, and general aging and deterioration of the materials. The participants from both countries will be specialists in different disciplines in order to discuss a broad range of research topics of mutual interest.